Mathematical Sciences REU Site: Computationalc Geometry Algebraic Geometry

9415268 Laubenbacher The investigator organizes a five-day symposium on Groebner bases and convex polytopes, featuring a series of ten lectures by Professor Bernd Sturmfels describing some of the central results about Groebner bases of toric ideals and their application to problems in integer programming and statistics. These lectures are complemented by a concurrent contributed paper session. Polynomial equations are important in algebraic geometry and commutative algebra. Moreover, many scientific, economic and engineering problems can be modeled by polynomial equations, and polynomials arise in computational statistics, integer programming, and a variety of other optimization problems. The theory of Groebner bases provides the foundation for many algorithms used in the analysis of such equations. So the theory plays a significant role not just in basic research but also in the solution of problems of strategic interest. Increasingly, this theory is becoming part of the standard curriculum at U.S. universities. Thus, the subject the conference is of interest to students, teachers and researchers in several disciplines, including mathematics, engineering, computer science, and operations research.